Research and Education in Physical Mathematics

Brenner
DMS-0605031

The investigator focuses on the coupling of the analytical
methods of applied mathematics to numerical computation, in the
context of both research and education. The topics considered
address a range of problems in engineering and science using a
combination of approximate analysis, computation, and experiments.
The investigator and his colleagues conduct the following projects:
(1) A mathematical analysis of ion beam sputtering, aimed at both
improving understanding of the surface patterns produced
technique (e.g. why do particular morphologies form for given sets
of conditions?) and at understanding whether ion beams can be used
to create and control prespecified surface morphologies;
(2) Studies of the self-assembly of two-dimensional elastic
sheets into three-dimensional structures. Here there are
important issues both with respect to assembly kinetics and in
determining the shape of the sheet that leads to the lowest
energy structure, when folded into a given topology;
(3) An analysis of the shapes of pollen grains, and the
mechanisms through which they dry up; and
(4) A mathematical analysis of droplet impact on a solid substrate
-- in particular, whether or not a droplet produces a splash
depends on an as yet unknown event that occurs immediately after
the impact.
The educational activities center around the general issue of how
the concepts of applied mathematics should be taught, given the
prevalence of computation. The two main issues addressed are:
How can computers be used to increase the mathematical (as opposed
to computational) sophistication of students? And secondly, how
should mathematical modeling be taught, in order to clearly
differentiate modeling (which produces understanding of a
phenomenon) from computer graphics (which produces a picture
reproducing it)? The investigator is developing new courses (and
modifications of old courses) to address these issues.

Over the past decade, computers, and computer simulations,
play an ever increasing role in science and scientific arguments.
It is clear this trend will continue. On the other hand, for
complicated systems there are serious issues in understanding
when to judge whether a computer simulation is correct. This
project addresses this general question both in the context of
specific research projects and also through the development of
educational courses and tools to help students learn how to
answer this question. The research projects include analyses of
complex, technologically important phenomena for which both
computer simulation and mathematical analysis can be combined.
These project include a study of ion beam sputtering, a complex
process that occurs when surfaces are irradiated with high energy
ions. The investigator and his colleagues study this problem
using both computer simulations and analytic methods, coupled
with experiments, in an effort to understand whether ion beams
can create specific, technologically useful, patterns in a
surface. Another project studies the self-assembly of elastic
sheets, in an effort to understand whether it is possible to
create small objects which self-assemble into useful components
in three dimensions. A third project studies the process when a
droplet of liquid splashes on a solid substrate. Despite the
ubiquity of this phenomenon it is not known why a droplet creates
a splash. On the educational front, the project aims to develop
material to teach students both how to carry out computer
simulations, and equally importantly how to evaluate whether they
are correct.